CISE Research Infrastructure

9303433 DeFanti This award is for the establishment of a laboratory for research on the design, implementation, dissemination, and use of highly interactive computing technologies for the benefit of computational, biomedical and engineering sciences. The application areas share the need for very high-speed data capture and presentation facilities, very high bandwidth communication, and very large information stores. The research topics to be explored by this laboratory include the design and implementation of virtual reality environments; the storage, retrieval, and navigation of very large information stores; the design and evaluation of user- centered domain-specific, multi-media applications; and the remote, shared access to specialized instrumentation resources. The researchers come from the Computer Science Department, the School of Art and Design, the Department of Electrical Engineering, the Department of Bioengineering, and the Laboratory for Biomedical visualization. Extensive collaborations are in place with the National Laboratories. The award provides for the acquisition of instrumentation to match this research. The laboratory will consist of the CAVE Virtual Reality Theater, a Database Computing Facility, an Interactive Multimedia laboratory, and a Networked Remote User Facility. The instrumentation provided consists of high performance visualization computers, mass storage devices, and high speed communications equipment.